U.S. China Joint Research: Research in Relaxation Models for Phase Transitions

9601376 Slemrod This award supports participation of two US investigators, Marshall Slemrod of the University of Wisconsin and Shi Jin of Georgia Institute of Technology, in a cooperative research project on relaxation models for dynamic phase transitions with Zheng Songmu from Fudan University, Shanghai, China and Wang Jinghua from the Institute of System Science, Chinese Academy of Sciences, Beijing. The project will employ formal and rigorous mathematical analysis, numerical analysis and scientific computation to investigate dynamic phase transitions arising in many important physical processes. This research addresses an important problem in modeling materials and processes. Strengthening cooperation in mathematics and computation sciences with China, which has a long tradition of excellence in mathematics and a recent emphasis in computational science, is important. The Chinese Academy of Sciences' Institute of Systems Science and the Mathematics Institute at Fudan University are leading centers in China in these fields, and collaboration among these researchers should prove quite effective.